The Growth and Development of Faults

As slip accrues on a fault, stress concentrates at its ends, which must be relieved by a lengthening of the fault. This project will focus on three aspects of this process, the fault tip processes, the macroscopic fracture criterion that describes it, and the resulting growth process and fault slip/length scaling relations. Results are aimed at determining net geological effects but have a clear impact on earthquake hazard analysis as well.